Differential Expression of Somatostatin Receptors in Rainbow Trout

Somatostatins (SS) are a diverse family of peptide hormones that control
animal growth, development, and metabolism. Despite the importance of this
hormone family, little is known about the basis of its multi-functional
nature. In particular, it is not known how the hormones and their
receptors interact to elicit a specific effect in a particular target cell
or how the structural heterogeneity of the SS family influences such
interactions. With this proposed work, the unique situation in teleost
fish such as rainbow trout, which possess multiple SSs, will be exploited
to examine fundamental aspects of SS-receptor interactions. The hypothesis
that rainbow trout possess multiple SS receptors with differential ligand
selectivity that are differentially expressed will be tested in four
experimental phases. In phase I, multiple mRNAs encoding distinct SS
receptors will be characterized. In phase 2, the binding characteristics
of expressed SS receptors will be examined. In phase 3, the distribution
and abundance of SS receptor mRNAs will be determined. In phase 4, factors
(e.g., nutritional state, insulin) that control the expression of SS
receptor mRNAs will be identified. While this work pertains specifically
to fish, it will provide important new insight regarding linkage between SS
receptor type to a specific biological action and have broad relevance to
understanding the multi-functional nature of SS.